Mathematical Sciences: Combinatorics, Complexity and Convexity

This award supports the research of Professor V. Klee to work in combinatorics, optimization, and computational geometry. He intends to work on higher dimensional computational geometry, the d-step conjecture in linear programming and qualitative analysis of linear systems. The research falls cross lines between the areas of combinatorics, optimization theory and computational geometry. Combinatorics attempts to find efficient methods to study how discrete collections of objects can be organized. And, so it is extremely important to modern communications. Optimization theory, first came to prominence in World War II, when the theory of linear programming was used so successfully. Computational geometry is fundamental to areas as diverse as CAD/CAM modelling and Robotics.